Network for Computational Nanotechnology

This award is to establish a Network for Computational Nanotechnology (NCN) at Purdue University with three-fold mission: (1) to catalyze the formation of teams of theorists, computational scientists, and experimentalists in research that addresses key challenges in realizing integrated nanosystems; (2) to support the research and the broader National Nanotechnology Initiative with an infrastructure that provides ready access to high-perfomence computing and visualization, facilities collaboration, delivers simulation services, and enables solutions to large, multi-scale problems by assembling standard, open-source components tht are available to the entire community; and (3) to develop educational packages that can be incorporated into the curricula to train students, scientists, and engineers. The NCN will initially address three research themes: (1) nanoelectronics, (2) naoelctromechanics, and (3) nsnobioelectronics. The University of Illinois, Urbana/Champaign, Stanford University, Northwestern University, and University of Florida will be initial participants. The core research topics and participants will evolve while preserving relevance and leadership in the rapidly developing field of nanoscience. A number of special projects will be undertaken designed to address the need for a second-generation network computing platform. This award is for an initial period of five years, subject to renewal for another five years.